Multimedia Equipment For Laboratory Instruction

Graphical and interactive multimedia presentations are used to improve laboratory instruction. The multimedia equipment is used to develop multimedia presentations that demonstrate correct laboratory procedures and setup using diagrams, photographs, and/or video; provide instruction and demonstration of proper laboratory technique; provide examples of valid data; and present theory and phenomena in an understandable form using visualization tools. Laboratory-level modules employ a high performance dedicated platform and are available to every student in the laboratory, while laboratory- station-level modules are appropriate for the computers available at each station. During the first year, two laboratories are targeted: the high- frequency and microwave lab, and the electronics lab. Because students generally find the microwave lab particularly difficult, multimedia presentations are used in the laboratory to elucidate concepts such as standing waves. These two labs also have one laptop/notebook computer per station to present the laboratory-station-level modules. In the following year, other faculty are introduced to multimedia in the laboratories where it is most effective in improving instruction.